The Processing of Superconducting Composite Materials By Electro-Discharge Compaction

The objective of this project is the development of a superconducting material processing technique based on electro-discharge compaction (EDC). Metal - Ceramic composites in which the ceramics used are high Tc superconductors will be produced.